An Undergraduate Laboratory on the Physics of Light and Color

This project is modernizing and expanding the laboratory component of an introductory course, Physics of Light and Color. This course is designed to provide both a quantitative and qualitative understanding of light, color and visual phenomena to students whose chosen professions make extensive use of these concepts and techniques. Such professions as graphic arts, fine art, photography, science education and others increasingly require knowledge of diverse optical processes and phenomena as computer generated additive color mixing and holography. This project permits acquisition of modern spectrophotometers with reflectance accessories. Two color graphics processors are being used for generating up to 256 colors. Five holography kits allow creation and examination of holographic images. Using such equipment students obtain hands-on experience and develop a deeper understanding of the scientific and technological aspects of color processes and holography. This understanding and appreciation are enhanced by the use of up-to-date, easy to use, reliable instrumentation. The University is matching the award with an equal amount of funds.